NSF Young Investigator

9458067 Stevens Two areas of research are being pursued that focus on the receptor molecules that are responsible for neuronal signal transduction. The first project takes a structural approach using x-ray and electron crystallography to elucidate the structure and function of the family of 7-transmembrane G- protein coupled receptors. Although there has been a great deal of information obtained about 7-transmembrane cell receptors, the information has not been expanded and consolidated so that an understanding of their structure and function is known. These molecules are key to understanding how signal transduction occurs between the cells in the brain and nervous system. The second project uses the neuronal receptors described in the first part in the design of a new molecular biosensor. The receptor biosensor harnesses the power of these selective and sensitive receptors by mimicking how cells communicate the detection of drugs, odorants, etc. The biosensor is a new material that couples the receptor biosensor to colored lipids that change color upon ligand binding induced structural changes in the receptor. By designing materials that mimic how neurons communicate, we are able to learn more about how communication occurs.